Sediment Transport by Turbulent Spots

The research is to produce a localized element of turbulence in an otherwise laminar boundary layer flow, and to trigger its occurrence so as to envelop a small source of particles from a flush-mounted wall reservoir. This will enable a study of turbulent particle entrainment and lift-up under carefully controlled conditions. Sediment transport is notably lacking in quantitative measurements of simultaneous turbulent and particle velocities.